Collaborative Reseach: Development of a Particle Tracking System for the Qweak Experiment

Virginia Polytechnic Institute and State University will design and
build the `Region 2' tracking chambers for the Qweak experiment at
Jefferson Lab. This experiment will make a high precision measurement
at very low momentum transfer of the proton's weak charge, which is its
coupling to the neutral Z boson. A high precision value of the weak
mixing angle at low momentum transfer will be extracted, thus providing
a sensitive test of the predicted energy scale dependence of this quantity
in the electroweak standard model. A failure to observe this expected
behavior could provide evidence for physics beyond the presently accepted
Standard Model. There are many candidate extensions to the Standard Model
that would generate observable effects in this experiment.

The Region 2 wire chambers are an essential component of the particle
tracking system, which is needed in order to precisely measure the
kinematics of the elastically scattered electrons, as well as for
critical studies of experimental backgrounds. The chambers will consist
of two sets of 50 cm x 50 cm horizontal drift chambers. Each drift
chamber will have a total of 6 planes of wires. The expected resolution
will be about 200 microns, providing an angular resolution of < 1 mrad.

The Region 2 drift chambers will provide quality educational experiences
for both graduate and undergraduate students. The timescale of the
project is well matched to the typical timescale of a graduate student's
time in graduate school, so the student will get to participate in all
hardware and software phases of the project. The tasks needed to
complete the project include design and construction of the chambers, the
front-end electronics, and the gas handling system, testing of the finished
product, implementation in the Qweak experiment, and data analysis and tracking
code development when the experiment takes data. We expect to involve
two graduate students and at least two undergraduate students in this
effort, under the supervision of the faculty and senior research staff
at Virginia Tech.